CLT-Net Requirements and Prototype Project

This is a project to determine the specifications for a collaborative electronic environment that would support distal CLT researchers, educators and others interested in learning about the research and practices emerging from the CLTs. Each CLT includes a doctoral degree granting university and a school district, but typically many other types of institutions are included such as colleges, community colleges, developers, education resource centers, private institutions and others, all of whom have contributions to make and specific needs. Under this project, a needs analysis of the CLT stakeholders will be carried out and specifications for a full system detailed